A 600 MHz NMR Spectrometer for Biomolecule Analysis

9877039

Abstract

This project involves the acquisition of a 600 MHz NMR spectrometer for the Instrumentation facilities of the Division of Chemistry and Chemical Engineering of California Institute of Technology. The major purpose of this high field instrument will be for the determination of the structures of complex biological molecules of biosynthetic, semisynthetic and synthetic origin. The research activities of several groups in the Division will benefit greatly from the new spectrometer and in many cases, entirely new projects will be made possible by the new instrument. The 600 MHz spectrometer has the resolution and sensitivity needed to determine structures of complexes in the 5 to 30 kD range. Research for which the instrument is required includes the study of metal-DNA complexes; protein- and peptide-DNA complexes; the structure of DNA intercalators; studies of the hyperthermostability of rubredoxin from P. furiosus; structure and dynamics of novel proteins; artificial proteins; ion channel proteins; and electron transfer reactions in wild-type and mutant netalloproteins. The availability of this instrument will have a major impact on both the research and training activities of the Division.